Undergraduate Laboratory Equipment for Isolating DNA, RNA, Proteins and Lipids.

This equipment is providing the Biology Department with the ability to isolate DNA and RNA through ultracentrifugation. The microfuges are being used for the easy manipulation of small volumes (10-200 ul) of RNA and DNA. Protein purification experiments and isozyme studies are being done in Cell Biology and in Plant Physiology using slab gel electrophoresis techniques which make cross sample comparisons easier than with tube gel electrophoretic systems. By working in the laboratory with DNA, RNA, and protein, the students gain hands on experience and greater insight into the major conceptual underpinnings of molecular biology and molecular genetics. In addition to its applications in six upper division courses, the equipment will support a newly instituted Honors Program in Biology.